Statistical Mechanics of Molecular Ionic Solutions in Water

Lesser Blum is supported by a grant from the Theoretical and Computational Chemistry Program to continue his statistical mechanical research in the area of aqueous solutions using one center model potentials of water which can be solved explicitly. The model consists of a spherical shell, a permanent electric dipole and a short range directional potential for the hydrogen bond which includes up to octupolar terms. Monte Carlo computer simulations have shown that atom-atom correlation functions are in good agreement with experiment. Computer simulations and formal analytical theory will be used to study ionic solutions with this model, and the scaling behavior for both non-associating, pairwise and multi- associating ions. Simple, analytical, yet accurate theories for ionic solutions in water-like model solvents, both in homogeneous media and near interfaces, are of interest in a large number of applications including: chemical engineering equation of state applications, colloid chemistry, solution kinetics, stability and folding of proteins, dynamics of biomembranes, corrosion, and catalysis in electrochemical cells.